EAGER: Enhanced Robust Persistent Identification of Data (E-RPID)

An increasing challenge in modern research is the rapid growth in ability to collect and store research data; this growth is much more rapid than the ability to catalog, make accessible, and reuse these data. Major challenges facing the scientific research enterprise include making data discoverable, accessible, and re-usable at Internet scales; and making it possible to use data to replicate analyses done in published research. The importance of this issue is at the center of many recent initiatives in Open Science and Open Data. The objective of this project is to address these deficiencies and to enable more options for data interoperability and reusability in the current research data landscape. One aim is to demonstrate how technical solutions for data accessibility and management should be designed, implemented, operated, and usable by a broad range of researchers. Another aim is to ultimately increase the publication, discovery, and reuse of data, thus contributing to the greater integrity of the scientific enterprise.

This project aims to create a full implementation of the Digital Object Architecture (DOA) concept to improve data interoperability and reusability and potentially transform the way research in many disciplines is conducted. The approach is to integrate existing and new software components into the Robust Persistent Identification of Data (RPID) testbed which itself is a 2-year pilot project supported by NSF (Project ID 1659310). Components to be added include a Digital Object Interface Protocol (DOIP) which defines common operations performed on digital objects; and a Repository Mapping Service which would allow mapping the contents of existing repositories to the Digital Object Architecture (DOA) environment. With the new components, the ensemble "Enhanced-RPID" (E-RPID) testbed will allow managing of data objects by assigning individual identifiers toward making data FAIR (findable, accessible, interoperable, and reusable). This technical effort along with planned educational material are designed to lower the barrier for adoption of Persistent Identification (PID)-centric data management throughout the data lifecycle, from initial data collection to long-term use and reuse. The E-RPID testbed will be housed on the NSF-funded Jetstream computational resource, will be applied to a number of important scientific use cases, and will contribute to activities fostered by the Research Data Alliance (RDA). The outcomes of this project are aimed to broadly benefit disciplinary and multi-disciplinary research and to facilitate better access to and utilization of existing data repositories.

This project is supported by the National Science Foundation's Public Access Initiative which is managed by the NSF Office of Advanced Cyberinfrastructure on behalf of the Foundation.